Computer simulations of giant fluctuations in mixing fluids

Thermal fluctuations in non-equilibrium systems exhibit remarkable
behavior compared to equilibrium systems. Giant fluctuations in
binary mixtures of miscible fluids have been observed, including
in recent experiments in microgravity. Novel mathematical and
computational challenges need to be addressed in order to include
thermal fluctuations in traditional computational fluid dynamics in
a way that is consistent with statistical mechanics. This proposal
is concerned with the design, mathematical analysis, and computer
implementation of finite-volume methods for fluctuating hydrodynamics
of fluid mixtures, as well as applications to diffusively mixing
fluids in gravity. The following research directions are proposed:
(1) Multi-resolution numerical schemes for solving the compressible
stochastic continuum equations; (2) Algorithms for incompressible,
and (3) low Mach fluctuating hydrodynamics of miscible mixtures on
staggered and collocated grids; (4) Simulations of giant fluctuations
and comparisons to experiments; (5) Study of the contribution
of advection by velocity fluctuations to transport in finite
non-equilibrium systems.

Flows at micro and nano scales typical of new devices and biological
systems are affected by thermal fluctuations. These effects are often
assumed small and are not included in traditional computational
fluid dynamics. However, giant fluctuations in the concentration
of a polymer solution have been observed in recent experiments
conducted in microgravity on a research space shuttle. Computer
simulations are ideally suited for studying the details of this
phenomenon and comparing the predictions of existing theory to
the experimental findings. However, our community still lacks
the appropriate computational tools, including both algorithms and
large-scale parallel codes, to attack this problem. The investigator
and his colleagues will develop such tools and use them to answer
important scientific questions concerning fluctuations in fluids, in
close collaboration with experimentalists. The developed algorithms
will be implemented in a public domain code whose development is funded
through a Software Infrastructure for Sustained Innovation NSF grant.